NSF I/UCRC Joining" Center for Lasers and Plasmas for Advanced Manufacturing"

A planning meeting will be held to investigate the University of Illinois joining the existing Industry/University Cooperative Research Center for Lasers and Plasmas for Advanced Manufacturing. With the University of Illinois background in plasma and laser related advanced manufacturing, the university is well poised to play a vital role in advancing the goals and mission of the I/UCRC to further develop science, engineering, and technology base for laser and plasma processing of materials, devices, and systems.

As the University of Illinois joins the I/UCRC, future research will pursue knowledge of atmospheric plasmas for manufacturing, space propulsion, high powered pulsed magnetron sputtering, and welding using previously developed techniques and developing new and novel ways to study and characterize these processes.